Nonlinear Equations and Optimization

DMS 0070641
ABSTRACT.

The principal investigator will continue his research program in the numerical
solution of large systems of nonlinear equations and noisy optimization
problems. In the area of nonlinear equations the PI will continue his
research program on pseudo-transient continuation methods for nonlinear
equations to the partial differential algebraic equation (PDAE) setting
and design and analyze multilevel methods for fully iterative algorithms
for parameter-dependent families of compact fixed point problems.
In the area of optimization, the principal investigator will
extend his work on sampling methods to problems with ``hidden constraints'',
i.e. constraints whose violation can only be detected by failure of the
objective function to return a value, continue his development of the implicit
filtering with the design of a Levenberg-Marquardt form of the algorithm,
and investigate the performance of the DIRECT method both from the
theoretical viewpoint and as a way to identify hidden constraints.
This aspect of the PI's research involves undergraduates in a significant way.

Many processes and models in engineering and science are expressed as nonlinear
equations. Numerical simulation of these processes requires the rapid and
accurate solution of these equations and a clear understanding of the methods
and their limitations. With a high-quality simulator in hand, optimization
can be used in design. The optimization problems that arise in
industrial design are often noisy because of measurement or simulation error.
The principal investigator will continue his work on the computational
solution of nonlinear equations and optimization problems. The work
will consist of study of algorithms, needed to ensure robustness and
reliability of simulations, implementation on distributed memory computers,
which is important for for rapid turnaround, and applying the methods
in collaborations with scientists and engineers in industry, national
laboratories, and academia. The work will be used in (a) environmental
modeling, measurement, and remediation, (b) simulation, optimal design,
and control in the aerospace industry, and in (c) optimization of
gas pipeline networks.